Acquisition of Scientific Equipment.

Investigators from Morris Brown College, an undergraduate institution, propose to purchase a liquid scintillation counter for biological research, particularly in areas of microbiology and cell biology. The instrumentation will be used in studies of Tetrahymena and cultured eukaryotic cells, among other topics. The instrumentation will also contribute extensively to the training of students in biological and environmental research and technology.